Travel Attend: International Conference on Rotordynamics, Tokyo, Japan - September 14-17, 1986

The purpose of this trave support is to allow the principal investigator to attend the International Conference on Rotordynamics, Tokyo, Japan, September 14-17, 1986. He will present an invited paper and chair a session. This is an important international meeting with significant representation from foreign countries.